Quantitative Genetics of Social Behavior

Title: Quantitative Genetics of Social Behavior

PI: Penelope F. Kukuk

Social behavior is found in all types of organisms and is a characteristic
of ecologically dominant species. The study of how social evolution came
about has concentrated on selection. To date, theoretical and
empirical work has focused on how group life and social cooperation influence
survival and reproduction. This work began in the nineteen sixties and
continues today. The other side of the evolutionary coin, the study of the
genetic mechanisms underlying social cooperation, has been neglected. Even
in the social Hymenoptera there is very little information concerning the
most basic issues. It is not known to what extent differences in social
behaviors among individuals in a species are based on differences in their
genetic makeup. In species where females all have the potential to be
competent reproductives, we do not know if there are enough genetic
differences between individuals underlying any given social behavior to
suggest that the behavior has the potential to evolve. Due to this lack of
knowledge it is not possible to predict the evolutionary trajectory of
social behaviors or to examine how inheritance of a suite of socially
relevant traits may be correlated. This one-sided approach to social
evolution is based on methodological constraints. Appropriate social
species have neither the large reproductive output nor the ease in
laboratory rearing needed to use the powerful methodology of quantitative
genetic research, a methodology that can best address these questions. This
limitation is changing. Due to new but well tested methods for obtaining
information rich genetic fingerprints for individuals, based on multiple
highly variable marker genes such as microsatellites, in combination with
conceptual and statistical advances it is now possible to apply the methods
of quantitative genetics to social behavior in a field setting for the first
time.
A collaboration between a quantitative geneticist (Allen Moore) and a
behavioral ecologist (Penny Kukuk) will apply new methodologies in a field
based quantitative genetic study of social behaviors for a group living
halictine bee species Lasioglossum (Chilalictus) hemichalceum. This
communal species, in which all group members reproduce, is an ideal species
for such a study. In this species, individuals differ from one another in
social behaviors and microsatellite markers are available to produce precise
genetic fingerprints for individuals. Information on similarities
between individuals in their microsatellite based genetic fingerprints
and easily observed social behaviors will be used to determine components of
inheritance for a suite of behavioral characteristics that are known to have
important effects on survival and reproduction. The research will pioneer
the quantitative genetic study of social behavior and pioneer the use of
quantitative genetic methodology for behavioral traits in a natural setting.